CSR: Small: PROM in Clouds: Exploiting Scheduling for PeRformance OptiMization in Clouds

Cloud computing is emerging as an attractive computing paradigm, where
both hardware and software resources can be leased from a cloud
provider to achieve better economy of scale, elasticity, availability,
and flexibility for a plethora of services. A major challenge in
designing such cloud platforms is in providing high and predictable
performance along with Quality of Service (QoS) guarantees. The
performance unpredictability is attributed to a myriad of factors
including system scale, workload dynamism, virtualization overheads,
resource sharing and contention.
The objective of this proposal is to investigate performance
enhancement and performance quantification techniques in a cloud
environment through three intertwined tasks.
First, a comprehensive scheduling framework consisting of a high-level
job scheduler and a fine-grained resource manager will be developed
for efficient management of cloud resources for performance enhancement.
Second, performance prediction models will be developed for estimating
job completion time (JCT) in a cloud platform.
Third, for providing QoS guarantees, a control-theoretic model
incorporating the proposed scheduler and analytical models will be
developed. Measurements on real platforms with MapReduce
and other representative cloud workloads will be used to validate the
proposed ideas.

This research addresses one of the main concerns of cloud computing -
What are the performance implications if my application is moved to a
cloud? If successful in answering this question, it would have a tremendous
impact on the cloud-enabled application domains. The cross-cutting
nature of this work can foster new research avenues.
In addition to undergraduate and graduate student training in areas
such as architecture, distributed systems, and performance modeling,
special attention will be given to involving women and minority
students in this project. The modeling tools and techniques developed
in this research will be made publicly available.